Metabolic Adaptations of Benthic Diatoms to Seasonal Light and Dissolved Oxygen Variations in Lake Fryxell, McMurdo Dry Valleys, Antarctica

In the McMurdo Dry Valleys, Antarctica, the permanently ice-covered lakes are unusual aquatic environments, home to unique communities of microbes, including photosynthetic diatoms. Diatoms are abundant in the microbial mats that grow on the floors of some of these lakes. In Lake Fryxell specific diatom species and their abundances vary with depth in the lake. The deepest ones get almost no light, even in summer, and they live in water that lacks oxygen except for what they produce as they photosynthesize. This project aims to characterize the impacts of these environmental extremes of darkness and little oxygen on the diatoms, including the species present, their distributions with depth on the lake floor, and variations in their metabolic activity with environmental differences. This will be done by analyzing genomic data from previously collected and sequenced microbial mat samples from Lake Fryxell. This project will use big data and machine learning techniques to analyze the abundance and function of diatoms in the mat ecosystems across gradients in the amount of available light and the concentration of oxygen in the lake water. It will also characterize how different organisms interact through their metabolisms. Results are expected to provide insights into the photosynthesis that supports these unusual ecosystems in addition to adaptations of the diatoms to extreme environments, which may inform future biotechnology applications. This project will train a postdoctoral scholar in using state-of-the-art artificial intelligence techniques to solve challenging biotechnology problems.

The permanently ice-covered lakes of the McMurdo Dry Valleys, Antarctica, host unique communities of microbes, including diatoms in benthic microbial mats. These mixed algal and cyanobacterial mats provide primary productivity for ecosystems in McMurdo Dry Valleys environments. Lake Fryxell hosts microbial mats with photosynthetic activity to depths of about 10.4 m. Diatoms are abundant in the community and may be the most active photosynthesizers in the anoxic waters between 9.5 and 10.4 m. This project aims to characterize environmental distributions of diatom species, their metabolic activity as a function of photosynthetically active radiation and dissolved oxygen concentrations, and extreme environment adaptations. The project will analyze metagenomic and transcriptomic data from samples from 5.4 to 11.4 m water depth. Diatom genomes will be assembled from metagenomic data, phylogenetically classified, and their relative abundances across environmental gradients quantified. Transcriptomic data will be mapped to the diatom genomes to characterize function across environmental conditions for different species. Transcriptomic data for both diatoms and other organisms present will be analyzed as k-mers to identify fingerprints of metabolisms per species. Results will be used to develop a machine learning model to correlate metabolisms within and across samples to characterize metabolic network structure as a function of environment. Finally, key diatom enzymes will be compared to those from closely related species to look for adaptations to the extreme conditions, which will be useful for biotechnology applications. This project will train a postdoctoral scholar in using state-of-the-art artificial intelligence techniques to solve challenging biotechnology problems.